Factors Affecting the Structure-Reactivity Relationship at Electrochemical Interfaces Formed at Novel Conductive and Semiconductive Diamond Thin Film Electrodes

The electrochemical and spectroscopic characterization of diamond thin film electrodes forms the focus of this research project at Utah State University, supported by the Analytical and Surface Chemistry Program. Synthetic diamond thin films show promise as physically and chemically robust electrode materials which may have application in a wide variety of electrochemical sensors and electrochemical processes in severe service environments. The work of this project is designed to develop the basic understanding of these materials necessary for their subsequent use in a variety of important technologies. The synthesis and characterization of diamond thin film electrodes is the subject of this research project. Diamond possesses an interesting combination of physical, chemical and electrochemical properties which make it promising as an electrode material in a number of sensing and process applications. A basic science understanding of the relationship between the structure of these films and their electrochemical and spectroelectrochemical activity is the goal of this research.